ITR: Exploration and Control of Condensed Matter Qubits

EIA - 0205641
Whaley, Birgitta K.
University of California-Berkeley

TITLE: Exploration and Control of Condensed Matter Qubits

The advent of new methods for controlling matter at nanometer length scales creates enormous opportunities for molecular and information processing. Looking beyond the present problem of how to extend Moore's law within the existing computational paradigm, we can see that the ability to fabricate and control at increasingly small dimension brings with it the potential to generate entirely new technologies for processing of information. This project explores the development of a new type of highly parallel processor that takes advantage of quantum degrees of freedom in solid state nanostructures to process information. The main focus of the project is the basic science required for realization of truly scalable quantum logic devices. We address this task with experiments that explore the physics of several potential solid state realizations of quantum bit states, and also with theoretical investigations of decoherence, of robust control, and of efficient schemes for quantum logic that are tailored to the underlying quantum physics of specific implementations. This project is carried out by an interdisciplinary group of scientists and engineers, drawn from computer and engineering science, chemical physics, and solid state physics. The broader impact of the work is to be disseminated together with educators and journalists in workshops and public lectures.